STTR Phase I: Potassium Ion Battery with Intermediate Charge Rate Competes with Lithium Ferrophosphate (LFP)-based Lithium-Ion Batteries (LIBs)

The broader/commercial impact of this Small Business Technology Transfer (STTR) Phase I project addresses the growing demand for "beyond lithium (Li)-ion" technologies by developing Potassium (K) Ion Batteries (KIB) as sustainable alternatives for Lithium (Li)-Ion Batteries (LIBs). In 2022, the market for Lithium-Iron Phosphate (LFP) batteries was valued at $12.5 billion, and projections suggest it will reach $52.7 billion by 2030, with a notable 19.7% compound annual growth rate (CAGR) from 2023 to 2030. The main driver behind this growth is the increasing adoption of electric vehicles (EVs). KIBs have the potential to become a cost-effective performance alternative to LIBs in EV and stationary applications with a domestic materials supply chain. The primary objective of this project is to enhance KIB performance, particularly focusing on enabling fast charge cycling for EVs applications. This endeavor aligns with the pursuit of a sustainable energy future, reduced dependence on critical materials, and the promotion of economic growth.

The intellectual merit of this project addresses a key question in “beyond Li-ion” energy storage systems: Why do non-Li architectures, that should in principle function as well as Li architectures, fall short at faster charging rates and how can this be resolved? While individual non-Li components (cathode, anode, and electrolyte) are highly promising in terms of charge transfer and storage behavior, why does the holistic system fall short? In a broader sense, resolving this quandary could potentially enable other earth abundant non-Li architectures to become viable, enabling domestically sourced energy systems to flourish. The commercially focused effort operates at the core of structure-functional properties relations within non-Li systems, where there is markedly much less understanding versus existing LIBs. The project will unravel key structure-properties relations in the nominally more reactive K-based architectures. This collaborative effort will allow for a broad spectrum of learning, starting at basic mechanistic insight at meso scale and advancing to commercially relevant full KIB pouch cell testing.